CAREER: Field-Programmable Mixed Analog and Digital Array

The core of this project is to investigate the design and implementation of a Field-Programmable Mixed analog and digital Array (FPMA) analogous to the concept of a Field-Programmable Gate Array (FPGA) for implementing various mixed-signal circuits. An FPMA as an integration of a Field-Programmable Analog Array (FPAA), FPGA, and Reconfigurable Data Converter (RDC) will be developed. An FPMA will contain: (1) an FPAA that integrates a general purpose FPAA and dedicated cells to realize various sampled-data and continuous-time circuits found in mixed- signal systems, (2) an area-efficient FPGA that combines a data-path FPGA and a bit-level FPGA to realize data-path circuits, finite state machines, and random logic, and (3) an RDC that can be configured to realize a number of high accuracy ADCs and/or DACs with different throughputs and resolutions for interfacing analog and digital signals.